EMSW21-RTG-Program in low-dimensional topology and its applications

Abstract

Award: DMS-0636643
Principal Investigator: Alan W. Reid, Robert E. Gompf,
Cameron M. Gordon, John E. Luecke

This RTG proposal is focused on training in low-dimensional
topology and its applications. The study of low-dimensional
manifolds has become one of the central areas of research
activity in mathematics. The PI's have an established
track-record of research accomplishments in several different
areas of low-dimensional topology; for example knot theory, 3 and
4-manifold topology, hyperbolic manifolds and symplectic
topology. The project will also allow the PI's to continue their
training of postdocs and students. The subject of this RTG
Proposal interacts with several other branches of mathematics as
well as the applied sciences. It therefore provides fertile
ground for research, education and training experiences at all
levels.

One of the main features of the proposal is to build, and
elevate, the successful structure for training and education
currently in place in the Department of Mathematics. However, an
important new component of our proposal is training for
interdisciplinary research. This will afford postdocs, graduate
and undergraduate students educational and training experiences
different from the traditional ones available at present. We
therefore aim to provide a framework that supports education and
training by instruction in the traditional sense, and also
provide opportunity for training experiences in applications of
topology in the physical and biological sciences. As part of this
latter effort the project will promote interactions with
scientists studying knotting phenomena in DNA and biomedical
mathematics. As part of our outreach efforts, we will instigate
a public lecture series that will raise the profile and level of
awareness of the role of topology in other sciences in the
University and local community.